Multilayer Piezoelectric/Diamond SAW Devices

The object of this proposal is to demonstrate the feasibility of depositing diamonds on the piezoelectric films and show that films have either large grain size or they are single crystalline. The films will be tested and characterized for future SAW device research work.